COLLABORATIVE RESEARCH: Studies of the Electrical Double Layer at the Surface of Clay Minerals

This project will continue to research of an interdisciplinary team to establish an accurate theoretical model of the electrical double layer at the surface of 2:1 clay minerals suspended in 1-1 and 2-1 electrolyte solutions. The research proposed has become feasible recently because of important, new results obtained by the Principal Investigators and other researchers. The renewal project objectives are: (I) To perform Monte Carlo simulations of the ion distributions in a 1-1 electrolyte near the surface of a 2:1 clay mineral, including fully molecular-scale water-water, water-ion, and ion-ion interactions. (II) To perform statistical mechanical calculations of the interactions ("swelling pressure") between planar charged surfaces immersed in 1-1, 2-1, and 1-2-1 electrolyte solutions. The results obtained will provide a significantly-improved, quantitative foundation for the surface chemistry of 2:1 clay minerals as it occurs typically in mineral weathering and diagenesis.